Aqueous Solvation Energetics and the Accommodation of Chargein Water Clusters Using Merged Beam Recombination of Cluster Ions

In this Experimental Physical Chemistry project funded by the Division of Chemistry, Prof. Coe (Ohio State University) will build a novel apparatus in which a molecular beam of positively charged, solvated ions is gently merged with a similar beam of negatively charged ions. Recombination will be monitored by detecting fast moving neutral products. This will permit production of solvent-separated ion pair clusters, and will lead to elucidation of step-wise solvation energies of strong electrolytes.%%% Reactions of charged species in solution lie at the heart of many chemical reactions, but very little hard information has been available about the detailed role of intervening solvent in influencing the course of the reaction. Prof. Coe (Ohio State University) will address this question by building an apparatus which will make it possible for the first time to determine how many solvent molecules there must be around the reacting species in order to keep positively charged materials from reacting immediately with negatively charged species. This will help to answer the more general question of how many molecules are needed to define what chemists mean by a solution of one substance in another.